Nucleation and Growth of Shear Flow Localization Over a Hierarchy of Length Scales and Loading Rates

9522738 Shawki This analytical/computational/experimental study will improve the understanding of material damage and catastrophic failure through shear flow localization over a wide range of loading rates, materials and observation length scales. An energy based framework as well as second strain gradients in the constitutive relations will be employed in deciding when dynamic shear localization occurs in thermally-sensitive and strain rate-sensitive materials that also work harden. The experimental phase, to be conducted at the Ohio State University, will study the evolution of the spatial deformation field. ***